Young Scholars Program

The Marquette University Educational Opportunity Program (EOP) Young Scholars Program will provide enrichment experiences in science, mathematics, and engineering to students from the Milwaukee area. The fields of Civil, Computer, Electrical, and Mechanical Engineering, Chemistry, Mathematics will be the to us. Students will participate in career exploration, hands-on research and skill-development activities, group discussions of philosophy and ethics of the sciences, and field trips. During the academic year, 8th grader students will work with volunteer mentors on science projects of their choice. Several Saturday morning meetings will be open to all interested Milwaukee-area students as well.